CAREER: Building a Bridge Between Research and Education in Materials Chemistry: A Career Development Plan

9733275 Huang This proposal aims to develop solid-state synthetic routes to a new generation of borophosphate-based second-order nonlinear optical (NLO) materials with superior optical properties (large NLO coefficients, high optical damage thresholds, lower absorption cutoffs, and phase matching at shorter wavelengths). Crystal engineering strategies will be used to produce novel supramolecular NLO host-guest assemblies derived from metal- organic coordination polymers and NLO-active organic chromophores. Because of the robust, infinite structures provided by polymeric inorganic host matrices, such materials may have enhanced mechanical, thermal and temporal stability, critical properties that have hampered commercial application of many otherwise promising organic molecule-based NLO materials. The education plan is centered on developing a coherent program for offering education and technical training in materials chemistry at both undergraduate and graduate levels, and on increasing Hispanic minority participation in chemistry. A materials chemistry laboratory course for upper-level undergraduate students will focus on strengthening the teaching of solid-state and materials chemistry for chemistry majors, thus better preparing the them for tomorrow's job market. Talented Hispanic students at the undergraduate level will be provided research experience and encouraged to pursue research careers in materials chemistry. This plan is anticipated to have a direct impact on the nation by increasing the number of highly trained and well-qualified Hispanic scientists. %%% The proposed research is aimed at synthesizing novel nonlinear optical (NLO) materials for applications such as optical switching, information storage, and laser frequency conversion related to technology areas that include telecommunications and computing. Furthermore, the design and synthesis of new classes of optical materials may lead not only to further technological innovations in these areas, but also to totally new technologies. This integrated research and education program will educate and train students to better compete for job opportunities in these fast-breaking areas. ***